Developing Scientific Instrument Operation, Data Analysis, and Data Visualization Skills in Plant Ecology and Plant Biology

This project aims to serve the national interest by providing access to authentic undergraduate research experiences through the integration of research-grade ecophysiological instrumentation into biology courses. Undergraduate research experiences enhance student engagement, persistence, and preparation for STEM careers, yet the availability of these experiences remains limited because traditional laboratory research can accommodate only a small number of students. This Level 1, Engaged Student Learning project plans to embed course-based undergraduate research experiences (CUREs) into undergraduate biology courses at San Diego State University. Students will use the same instruments employed in ecological research to investigate photosynthesis and carbon cycling across biological scales, from chloroplasts to ecosystems. By integrating scientific practices with core biological concepts, the project intends to strengthen student learning, increase participation in STEM, and develop workforce-relevant research skills. The significance of the project lies in expanding access to authentic research experiences while strengthening connections between teaching and contemporary ecological research.

The goals of this project are to improve student understanding of plant physiology and ecosystem ecology while investigating the effectiveness of integrating research-grade instrumentation into undergraduate instruction. Students will collect and analyze physiological and ecosystem data, gaining experience in experimental design, R programming, data analysis, and scientific communication. The project plans to assess student learning, engagement, and research self-efficacy using evidence-based evaluation methods and disseminate results through publications, professional meetings, and university outreach. The project is expected to advance understanding of how course-based research experiences supported by modern scientific instrumentation promote student learning and persistence in STEM. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of practices and tools.